Sulfur Gas Intercomparison Workshop

The atmospheric sulfur cycle is controlled to a large extent by natural processes involving the release of biogenic sulfur gases into the troposphere. An understanding of these processes is of importance to a number of global problems in atmospheric chemistry, including: the origin of sulfur dioxide and sulfate aerosol in remote regions; the impact of sulfur gases on tropospheric oxidant cycles; the contribution of biogenic sources to acid precipitation in pH sensitive ecosystems; and possible long-term climate controlling feedbacks between greenhouse gases and cloud condensation nuclei. This project will provide for a workshop to bring together many of the principal researchers who are making sulfur gas measurements in the atmosphere. The purpose of the workshop is to discuss the present analytical and field scientific problems so that a successful intercalibration and validation of techniques and methods can be planned and developed in the next three years. A successful intercalibration on the measurement of sulfur gases will be an important mechanism of determining the reliability of available research data on atmospheric sulfur chemistry to develop future strategies for studying the biogeochemical cycling of this environmentally important element.